Meeting for NSF/DUE PIs Workshop

The Mathematical Association of America (MAA) is organizing a meeting for Principal Investigators (PIs) and co-Principal Investigators of currently funded DUE projects in the mathematical sciences in Washington, DC in March, 2002. The meeting brings together PIs of projects funded by the Course, Curriculum, and Laboratory Improvement Program (CCLI), the Advanced Technological Education Program (ATE), and selected PIs of past Course and Curriculum Development Program (CCD) projects in the mathematical sciences. Meeting themes center on the role of the mathematical sciences in undergraduate general education with emphases on the ATE program, teacher preparation, and electronic publication, notably through the MAA Mathematical Sciences Digital Library (MathDL). An important activity of the meeting is consideration of the dissemination of (digital) learning materials in new forms and through new vehicles.